Composite (Perturbative and Full Numerical) Evolution of Black Hole Collisions

This project continues the development of an interface between 3D numerical simulations of colliding black holes and an approximate description of the merging black holes as a single distorted black hole (close limit approximation). The successful development of the interface would allow the evolution of the black hole collision to continue through the plunge phase through the final ringdown phase.
The simulation of the two stages would allow estimates of the waveform and radiated angular momentum and energy to be made. These estimates would represent a useful first step in producing information useful to gravitational wave detectors and could be used to cross-check similar studies using different 3D codes and interfaces.